Algorithms for Approximate Routing Problems

The research in this proposal aims to advance fundamental
knowledge of routing methods that trade off optimality in return for
space, time, locality, fault-tolerance, and adaptability to changing
network topology. The study of multi-criteria routing problems is also
commenced, where for even the most natural and simply-stated multi-criteria
routing problems, there are typically only heuristics known. The goal
is to produce methods that trade off some optimality of the solution
in returned for lowered computational resurces, in a quantifiable way.

Approximate shortest-paths, compact routing, and distance labeling
problems will be studied, along with their extensions to directed
networks, dynamic networks, and multi-criteria formulations
incorporating different tradeoffs of time and space with measures of
risk and reliability.